REU SITE: Industrial Research for Undergraduates

This project will bring ten undergraduate students to work at the GTE Laboratories for a ten week period in the summer of 1992. Recruiting for the program is national in scope, and will build on the past success of similar projects at the Laboratories. Each participant will be assigned to a member of the GTE Laboratories Technical Staff. A sequence of oral and written reports will be included in the experience. Projects will be involved from the following organizations within the Laboratories: Computer and Intelligent Systems Laboratory, Service Applications and Technology Laboratory, Systems Technology Laboratory, Telecommunications Research Laboratory, and Wireless and Secure Systems Laboratory.